Fluorescence Lifetime Facility

9318102 schenck This is a proposal to purchase equipment for the measurement of fluorescence lifetimes and fluorescence anisotropy lifetimes of biological macromolecules. The equipment will be capable of recording fluorescence lifetime decays spanning the time range from 20 ps to 100 ns and longer, and will allow the use of a wide variety of fluorophores spanning the spectrum to UV to near infrared. The requested equipment is composed of a titanium sapphire mode locked laser and associated optical and electronic components. Among other topics, the equipment will be used to study the mechanism of bacterial photosynthesis (using peptides that have been manipulated by site directed mutagenesis), charge separation reactions in bacterial photosynthesis, and energy transfer in bacteriorhodopsin. u ~ \ ^ _ ` a b c d e g i q r u v w x y z | } ~ 9318102 schenck This is a proposal to purchase equipment for the measurement of fluorescence lifetimes and fluorescence anis h h h h F ( ( B Times New Roman Symbol & Arial 1 Courier 0 MS LineDraw h = abstract Deseree King, BIR Deseree King, BIR